Calculus Redux

Students are finding more excitement and making better progress in calculus because of a revised curriculum that emphasizes problem solving, building intuition, and improving written mathematical expression. A data base is being created consisting of non-routine, open-ended, multi-step problems and discussion modules emphasizing concepts, experimentation, and widely varying applications.